Engineering Faculty Internship: Feature-Based Computer Aided Design Model Reconstruction with Digital Replication

Digital replication is a new, rapid reverse engineering process for making highly detailed three dimensional electronic models of physical objects through the use of X-Ray Computerized Tomography (CT) scanning. With current industrial CT technology, Digital Replica of small objects (24 in3) can be generated in a few hours. The resulting surface model is accurate and captures all part details, but it is not compatible with conventional computer aided design (CAD) modeling systems. The main objective of this project is to develop CAD interfaces to organize the surface data points into a more structured curve and surface representation, such as the non-uniform rational B-spline (NURBS) form, which can be converted into standard CAD data exchange formats, such as IGES, and PDES standards. The system will provide a means to rapidly generate CAD models from existing parts for which CAD data is missing or incomplete. In addition to the analytic representation for curve and surface, the solid model requires the establishment of higher level geometrical and topological features for describing both external and internal structural shapes of the solid object. Features such as holes, slots or pockets, that may be easily identified in both inspection and manufacturing processes will be used.